SBIR Phase I: Tunable Oxygenating Biopolymer Hydrogel Dressings for Chronic Wound Care

This Small Business Innovation Research (SBIR) Phase I project will investigate novel
approaches for biopolymer materials that uniquely enable oxygen incorporation into hydrogel
dressings to improve and accelerate chronic wound healing. The proposed work differs drastically
from other research programs and commercial efforts to use oxygen in chronic wound healing as
it is the first to combine oxygen, a moist and clean healing environment, and antimicrobial
properties into one cost-effective and easy-to-use product. Current commercial oxygen-delivery
therapies for wound care, e.g., hyperbaric oxygen chambers and topical oxygen devices, are
intermittent, inconvenient to use, and require access to expensive specialized equipment.
Successfully introducing oxygenating wound dressings to the market will allow addressing the
serious and pervasive burden on healthcare facilities and the exorbitant costs associated with
chronic wound care. In the USA alone, diabetic chronic wounds cause direct healthcare-related
costs of $1.5 billion and total direct and indirect costs of $20 billion.
The proposed research incorporates proprietary patent-pending biopolymer materials and
processing methods to create oxygenating hydrogels that can be made into wound dressings.
The dressings have the unique potential to provide uniform and tunable oxygenation to heal
chronic wounds. Dressing embodiments, syntheses, and manufacturing techniques will be
explored to improve product performance and characteristics, reduce costs, and demonstrate
commercial feasibility and viability of the production process. Thus, knowledge of biomaterials for
wound care will be significantly advanced by the proposed research. Prototype wound dressings
will be characterized and tested based on customer requirements.